Altithermal Occupation of the High Plains

Meltzer The goal of this research is to conduct intensive archaeological and geophysical survey and testing at Gibson Ranch which is located near Earth, Texas. Dr. Meltzer will attempt to determine whether archaeological materials of Altithermal age (ca 7,500 to 5,000 before the present) occur. The work will focus on a ca. 125,000 meter square area of the draw and use ground penetrating radar to examine the buried Altithermal surface for traces of water wells and other humanly produced features. Any detected features will be checked in test trenches/excavations. A surface survey of the surrounding dune fields and uplands will also be conducted to search for associated habitation sites. The goal of the research is to determine whether humans groups occupied the area during the Altithermal and, if so, to map their extent of their archaeological sites. Dr Meltzer will collect preliminary data on site age, artifacts, paleoecological and sedimentary context. Humans were clearly present in the New World by at least 12,000 years ago. Over the succeeding period climate changed dramatically and has been marked by periods both warmer and cooler than today. Archaeologists wish to understand how humans adapt to and make use of their environment and the archaeological and geological records which provide long term information on environmental change and human response. They thus provide an excellent context to study such questions. The Altithermal is a particularly interesting period because it marks an extreme fluxuation. On the High Plains of the U.S., temperatures peaked, evapotranspiration increased and effective rainfall decreased. Where most pronounced, loss of soil moisture and reduced vegetative cover triggered sediment weathering, arroyo cutting, and dust and dune accumulation. In areas hardest hit, lakes shrank or evaporated and aquifer recharge failed to keep pace with discharge. There were also changes in flora and fauna. This situation provides an excellent co ntext to understand how human adapt in extreme conditions and such is the goal of Dr. Meltzer's research.